Newton Institute Program on Global Problems in Mathematical Relativity

Abstract

Award: DMS-0505795
Principal Investigator: Gregory J. Galloway

The Isaac Newton Institute for the Mathematical Sciences is
running a semester long program on Global Problems in
Mathematical Relativity (GMR) in Cambridge, England from August
to December, 2005. The purpose of this award is to provide
partial travel and subsistence support for U. S. participants.
The general aim of the GMR program is to bring together experts
in the field, along with early career researchers and graduate
students, to discuss recent striking advances in mathematical
aspects of general relativity and related theories of gravity,
and to address existing problems and challenges. The program
consists of three focused conferences: (1) New Directions in
Numerical Relativity, (2) Global General Relativity, and (3) The
Constraint Equations, together with a series of thematic
workshops that will run throughout the course of the program. The
GMR program coincides with the 100 year anniversary of Einstein's
Special Theory of Relativity. General Relativity, Einstein's
geometric theory of gravity, which incorporates the special
theory, has proven to be an extraordinarily accurate theory of
gravity at both the local astrophysical and cosmological
scales. The results of the collaborative research and analysis to
be carried out during the program will have a significant bearing
on various fundamental physical problems, such as the issue of
the final state of gravitational collapse, and its implications
for the detection of gravitational radiation. Participation of
graduate students and recent PhD's is a key component of the
program, and is crucial to the continuing vitality of the area.